ARFMP: Replacement and Modernization of the University of Wyoming Botany Glasshouse

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to the University of Wyoming for replacement of the Botany Greenhouse Facility which houses botany research and research training activities. This building was constructed in 1940 and last renovated in 1972. The ARFMP grant of $575,000 and $745,000 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the current research infrastructure by replacing a facility for which renovation is not cost effective. The replacement of the greenhouse and headhouse will make possible optimal plant research and higher level controlled experiments than are currently feasible, and it will contribute to the Botany Department's goal of coordinating faculty to address fundamental questions about photosynthesis and plant adaptation. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of undergraduate, graduate, and postdoctoral students. The Departments of Biology and Botany at the University of Wyoming are in the process of formulating aggressive student recruitment protocols that are attracting student majors from the region.